ROW: Hydrodynamic Controls on Sedimentation in Tidal Creeksof the Georgia Coast

The proposed work is to design and initiate a research program to investigate the detailed sedimentology and hydrodynamics of tidal creeks along the Georgia coast. The approach will be a quantitative analysis of low processes and sedimentation, which is especially important because few existing facies models accurately explain fluvial to marine transitional deposits in terms of modern processes. A research program will be developed in modern coastal environments that will lead to better three-dimensional models useful for interpreting the ancient sedimentary record. Specifically this research will lead to better understanding of the mechanisms that control evolution of tidal creek-salt marsh ecosystems and how they are preserved in the geologic record.